Presidential Young Investigator Awards

This Presidential Young Investigator Award is made to support research in computational mechanics. Fundamental issues in both the boundary element and finite element methods will be investigated. Of special interest are questions of sensitivity and inverse problems.